Dissertation Research: Evolution of Outcrossing and Sex Ratio in Caenorhabditis elegans

This research aims to impart an evolutionary and ecological perspective on
the study of a model organism, the nematode Caenorhabditis elegans. In this
nematode, hermaphrodites--individuals with male/female reproductive organs--may
reproduce alone or via fertilization from males. This research seeks to elucidate
the role of males in this species and to explore general features involved
in the evolution of outcrossing. In particular: what proximate and ultimate
forces influence the ability of males to persist, and at what frequencies?
These issues will be addressed by (1) using molecular methods to determine
the frequency of males in large lab and natural populations, and (2) performing
lab selection experiments to test hypotheses for the maintenance of outcrossing.

This work will provide one of the first evolutionary ecological perspectives
for C. elegans. This species has been subject to intensive study from genetics
(the first animal genome sequenced) and developmental biology (all cell fates
are mapped between zygote and adult), but disproportionately little information
is available regarding its ecology and the processes underlying the evolution
of its unusual breeding system. This research will integrate multiple complementary
approaches to characterize a more resonant description of ecology and evolution
in this model organism, and bear on general issues in the study of evolution
relating to the evolution and maintenance of outcrossing.